Computer Science, Engineering, and Mathematics Scholarships

This project provides 50 scholarships for low-income students to obtain associate degrees in Computer Science, Mathematics, pre- Engineering, or Electrical Engineering. The project also provides academic enhancement and mentoring, along with career exploration and placement activities. Scholarship recipients receive $1,000 per semester, renewable for up to four semesters, which covers tuition, fees, and most books for a 12- hour semester. The project is designed to help and encourage scholarship recipients to matriculate into four-year institutions or to become gainfully employed in an SMET area.